Learning to Coordinate Multijoint Pulls

9319601 Lee Humans can learn complex movement skills that involve coordination of the entire body. This project will study three aspects of how the brain learns to coordinate a complex action that requires standing human subjects to pull accurately on a handle without losing balance. The horizontal body motions of individuals skilled at this motion resemble those of an inverted pendulum controlled by an elastic cord and a pulley. First it will be determined how subjects learn this pendulum - like coordination and if the pendulum model fits vertical body motion as well. Second, it will be determined whether the stiffness of the body (like the elasticity of the cord) decreases with learning, and if so, whether decreased stiffness is due to lower simultaneous activation of agonist and antagonist muscles in the arms, legs and trunk. Third, it will be determined if the number of independently - moving joints increases with learning, and how the brain alters muscle activity patterns to mediate changes in joint movement. The results of this study will provide a basis of later studies of the brain structures that contribute to the learning of coordination.